Novel Phenomena in Quarkonium and Jet Production at High Energy Hadron

A joint research project in theoretical elementary particle physics
involving US institutions (Iowa State and SUNY at Stony Brook) and two
institutions of the Russian Academy of Sciences (St. Petersburg Nuclear
Physics Institute and Institute for Nuclear Research, Moscow) will address
the production of "J/Psi" particles in high-energy collisions. Precision
calculations of the rate for production of these particles predicted by
Quantum Chromodynamics, the theory of the strong nuclear force, will be
performed. Our ability to measure the J/Psi production rate in both low
momentum and high momentum regions makes the J/Psi a unique probe for
exploring the strong nuclear force in physical situations where it is
neither weak nor extremely strong. The calculations to be carried out are
important to the improvement of our understanding of Quantum
Chromodynamics and our confidence in it, and to the furthering of our
understanding of the strong nuclear force.